Magnetic Properties of Ultra Thin Films

9521126 Willis The magnetic properties of materials depositied as ultrathin films on crystalline surfaces has excited much attention due to their unusual behavior and potential for new magnetic recording and sensor devices. The scientific goal of this research project is to gain a deeper understanding of the physical laws which govern the magnetic behavior as the film thickness approached the limit of few monolayers. Evidence for different distinct classes of magnetic behavior, and a crossover in dimensionality (from three- to two-dimensions), is observed as the film thickness approaches a few monolayers. In this ultrathin thickness regime, the films are metastable due to the `clamping' influence of the substrate crystal's lattice. It is possible to fabricate new phases of matter, with unique properties, which do not exist in bulk material. New alloys with novel magnetic properties hold high promise for scientific research and future technological application. This project deals with the fundamental properties of these ultrathin films as investigated by the magnetooptic Kerr effect and related techniques. %%% This project deals with magnetism studies of ultrathin films of magnetic atoms. The films are deposited atomic-layer-by-atomic-layer on atomically flat substrates. The arrangement of the deposited surface atoms is determined primarily by the underlying substrate. As a result the surface atoms have different properties from what would be found for the same atoms in a normal bulk phase. These surface metastable magnetic layers often exhibit unusual and unsuspected behavior, and have great potential for advanced materials for magnetic recording and sensor devices. This research probes the magnetism of ultrathin magnetic layers to understand the fundamental physics of these materials. The results are of basic interest and could lead to new materials for practical applica tions. ***